Conference: Motivic homotopy, K-theory, and Modular Representations

This award provides partial support for the participation of early career US-based mathematicians to attend the conference "Motivic homotopy, K-theory, and Modular Representations" to be held August 9-11, at the University of Southern California in Los Angeles, California. While recent events have often focused on specific aspects within these domains, this conference aims to unite mathematicians from diverse yet interconnected areas. The core purpose of the project is to support the attendance and career development of emerging scholars from the United States, and support from this award will benefit scholars from a broad selection of U.S. universities and diverse backgrounds; the intent is to maximize the effect on workforce development.

The conference will convene at the intersection of homotopy theory, algebraic geometry, and representation theory, focusing on areas that have experienced significant growth over the past three decades. Furthermore, it will explore applications of these fields to neighboring disciplines such as mathematical physics. All these fields have seen major advances and changes in the last five years, and this conference with international scope aims to synthesize major recent developments. More information about the conferences can be found at the website: https://sites.google.com/view/efriedlander80.